NSF Young Investigator

9457328 Perkins This project is a NSF Young Investigator award. The subject of the research is concerned with the transportation infrastructure. In particular, the research focuses on developing a comprehensive methodology model to understand better the relationships between inter model transportation infrastructure facilities and state and multi-state level economic development. The research will consider: current methodologies, casual linkage, assessment and analysis, develop a comprehensive model, and evaluation of the model. ***